1995 Neurobiology of Drosophila Conference, October 5-9, 1995, Cold Spring Harbor, New York

9505679 Grodzicker Drosophila (fruit flies) provide a model system for the study of problems in brain organization, brain development, and behavior. The power of this model system is increased because with this organism techniques are available to analyze both the genetic and biochemical substrates of brain and behavior. This award will provide partial support for younger scientists (especially women and minorities) to attend an important core meeting on Drosophila neurobiology. Thus the award will help stimulate neuroscience research, as well as the training and development of young scientists. ***